FAW: Nuclear Structure Studies

This Faculty Award for Women Scientists and Engineers is made to Dr. Jolie A. Cizewski of the Physics Department, Rutgers University. Dr. Cizewski will continue investigations of the structure of medium- and heavy-mass nuclei by studying the complete spectrum of excitations of low and moderate angular momentum. The NSF Faculty Award for Women recognizes the high quality of the awardee's record in teaching and scholarship as well as potential for continued significant contributions to scientific research, the academic profession, and the education of future scientists. Particularly noteworthy achievements are Dr. Cizewski's teaching achievements, her encouragement of graduate research, and her own research in nuclear physics.